Postdoctoral: Haptic Representation and Rendering of Complex Contact States

0203146
Xiao, Jing
University of North Carolina at Charlotte

CISE Postdoctoral Associates in Experimental Computer Science: Haptic Representation and Rendering of Complex Contact States

The proposed research is concerned with 1) how to simulate, with high fidelity in a virtual environment, the effect felt by a human operator holding one or more parts during a manual assembly or manipulation process, and 2) how to automatically render such an effect in real-time so that a human in a virtual environment feels as though the parts are real. The experimental and interdisciplinary nature of the proposed research will provide opportunities for the postdoctoral associate to broaden and deepen research skills and expertise in geometric and physical computation algorithms, human-computer interaction, mechanics of robotic manipulation, computer simulation, animation, teleoperation, and collaboration over the Internet. Potential applications of the proposed research include virtual prototyping, distance learning, e-commerce, and entertainment.